Development of an Undergraduate Systems and Control Laboratory

This project supports the development of an undergraduate dynamic systems and control laboratory to enhance the sequence of dynamics courses presently offered by the Department of Mechanical Engineering at this institution. The laboratory is composed of four workstations equipped with an HP 6253A dual DC power supply, Hp 6825A DC power supply/ amplifier, motor control module, and digital oscilloscope. Each pair of workstations is serviced by digital and analog pen plotters, and a Wavetek Data Multimeter interfaced to an IBM PS/2-50 computer for data logging, analysis, and digital control capability. The instrumentation allows the student to perform parameter quantification experiments on diverse system attributes such as spring constants, dashpot damping coefficients, and the torque and generator constants of electric motors. This award is being matched by an equal sum from the grantee.